Metalloprotein Electron Transfer Mechanisms

In this project supported by the Inorganic, Bioinorganic and Organometallic Chemistry Program, Harry B. Gray of the California Institute of Technology will investigate the factors that control long-range electron transfer in biological systems. The studies will lead to a better understanding of the biochemical oxidation-reduction mechanisms in life processes. The dependence of the rate of electron transfer on donor- acceptor separation and reaction driving force (Gibbs free energy) will be studied in several derivatives of sperm whale myoglobin and horse heart cytochrome c. A methodology will be developed to modify surface histidines with tetraammine- ruthenium pyridinium complexes which will allow introduction of organic acceptor moieties in four well-defined positions on the surface of myoglobin. Semisynthetic procedures will be used to place organic acceptors at position-82 inside cytochrome c (phenylalanine-82 will be replaced by fluoro- and cyano-phenyl- alanines). Combined driving force/distance-variation electron transfer experiments will be carried out on the modified myoglobins. Photoinduced charge separation and charge recombination reactions in zinc porphyrin/position-82-acceptor cytochrome c derivatives will be investigated.